Intelligent Tutors in Algebra and Geometry

"Intelligent Tutors in Algebra and Geometry" Currently we have developed a technology for effectively producing intelligent tutors that produce about a one standard deviation improvement on high school mathematics achievement. The goal of this research is to develop and demonstrate intelligent tutoring techniques that will yield a dramatic increase in the effectiveness of intelligent tutoring to a three standard deviation effect. This effort will advance in four fronts. We will develop deeper cognitive models that get at the planning behind mathematics problem solving. We will extend our model-tracing techniques to deal with a word-problem-oriented curriculum. We will identify which features of human and computer pedagogical strategy are effective. We will identify develop interface features for delivering speech, for instructing declarative structures, and for graphically reifying abstract mathematical concepts. The first two years of this proposal will be devoted to exploring these directions. Effort in the third and fourth years will also be directed towards demonstration of this technology and towards dissemination of the technology. We will develop and integrated algebra and geometry tutor that will cover in one year the material that is normally covered in two. We will create a general tutoring architecture that can be used by others to develop mathematics curriculum.